Research Initiation Award: Finite Deformation of Flexible Composites

This investigation will focus on the nonlinear constitutive relations needed for flexible composites undergoing large deformations. The theoretical phase will examine biaxial behavior of a fabric reinforced flexible composite while the experimental part will involve characterization of the component materials, fabrication and testing of such composites.